WORKSHOP: Forging NBII Partnerships to be held Spring 2000, at the Philadelphia Academy of Sciences, Philadelphia, PA

This workshop is designed to promote public-private partnering to further the development and usefulness of the National Biological Infrastructure (NBII). The NBII Framework has as its goals: obtaining the broadest possible participation of both public and private sectors; encouraging greater coordination of and support for R&D on advanced systems and technologies; promoting use of collaboratively developed standards; increasing federal R&D to support biodiversity and ecosystems informatics; and cooperatively developing the long-range implementation plan for the NBII-2. During the day and a half gathering, 40 executives and educators from corporations, non-profits, and non-governmental organizations will address issues of how NBII-2 can meet needs of industry and public sector interests, intellectual property rights, and means to capture interests of various constituencies. Outcomes of the workshop will include focused white papers that may help to educate the public and provide new directions for the NBII program.